Proposal to Establish an REU Site in Engineering at Caltech

Ten undergraduate students are engaged in a 10-week period of research at the university. The program parallels an existing university program--Summer Undergraduate Research Fellowship (SURF). The new project provides for more participation by students from other institutions. The students come from local and national areas; selections consider minorities and women. A broad spectrum of research opportunities exist.